Building a Pipeline for Diversity

REVISED ABSTRACT, Building a Pipeline for Diversity, GEO-0303096, Furman, Tanya

This award will provide initial funding for efforts by the Department of Geosciences at the Pennsylvania State University to increase diversity in the geosciences. Key components of this award are the development of two new undergraduate courses (Geo-Resource Development and Sustainable Livelihoods in Africa; Appropriate Technology for Africa) at the University Park campus, the adaptation of these courses for implementation at the University's two year campus in Delaware County, the export of a third general education course (Environments of Africa) to the branch campus, and the addition of minority students to an existing summer research experience for talented undergraduates. Support will be provided for faculty summer salary, program development supplies and travel, as well as for the initial set-up of the program website and participant support for the summer research experiences.